Laboratory for Introductory Computer Science Sequence

A new laboratory component is proposed for the introductory computer science sequence. A computer science facility will be established that will provide for an effective "closed" laboratory component to these courses. The project will affect all the courses taught by the computer science department. New computer-servers will be added to the existing network and will function as a computer science facility. Students taking computer science classes will be able to access this facility from on and off campus. Since it will be a department facility the students will be given as much access as possible. Material developed by previously and currently funded NSF projects will be used as much as possible in the development of the laboratories in this project. This will provide the best laboratory software as quickly and as expensively as is possible. Every student taking computer science courses, both majors and non majors will have the opportunity to learn as much as they can and will be better prepared for transfer to other colleges and universities.